Independent Analyses, Convenings, and Studies to Advance Computing Research

With support from this project, the National Academies of Sciences, Engineering, and Medicine will advance computing research through independent analysis, convenings, and studies. Computing is reshaping science, industry, security, and daily life. It is opening new research paths. It is also raising hard questions about strategy, infrastructure, workforce, and policy. This project builds on nearly four decades of National Academies work. It brings together leaders from academia, industry, and government to study new research frontiers and set priorities. The work spans fields such as artificial intelligence and quantum information science. It also spans shared challenges, including advanced computing systems, trusted and reliable systems, the innovation ecosystem, and education and workforce needs.

Over three years, the project will run a flexible mix of activities suited to each topic. It will sustain ongoing dialogue with the computing research community. It will hold focused meetings and workshops and produce expert issue papers on timely topics. It will also conduct in-depth studies that offer findings and, where useful, recommendations. Results will reach a wide audience through public meetings, webinars, briefings, and National Academies Press reports. In this way, researchers, educators, funding agencies, industry, and policymakers gain access to rigorous, independent analysis. These activities will help clarify research directions and guide choices about infrastructure and workforce. They will strengthen the nation's ability to lead in computing. In doing so, the project advances science, supports national prosperity and security, and informs the decisions that shape the computing research enterprise.